Carbohydrate Structure-Function Relationships/Group Proposal

9400633 Reinhold This program will address the growing interest in carbohydrate function into one administrative mechanism to address the needs of structure. The collaborating groups have defined functional roles for carbohydrate samples that fall into four research areas: (1) plant oligosaccharides involved in nitrogen fixation and signal transduction; (2 microbial cell attachment and/or cell activation: (3) carbohydrate and protein anchors: glycolipids and GPI-anchors; and, (4) N-and O-linked glycoproteins. This Group project consolidates cross-disciplinary problems in carbohydrate structure and involves personnel with analytical expertise and dedicated instrumentation for a comprehensive approach to function. %%% Contemporary biology is placing greater attention on factors that relate to the interplay of cells with their environment. Symbiotic nitrogen fixation, plant defense mechanisms, immune surveillance, angiogenesis, cellular differentiation and adhesion are events associated with multi-cellular systems. Here, cell-cell interactions, the integrated development and differentiation so characteristic of living tissues, is manifested within an extracellular matrix which depends on membranes, tissue surfaces and the ordered transport of signals by and through these barriers. Close examination of this complex cellular milieu reveals that they are resplendent with a vast array of glycosylated molecules. The need to know the detailed structural features of these molecules is compelling. An understanding of compound class or component composition has little meaning when one is trying to unravel the biochemistry of cellular events or to mimic, stimulate or retard these processes. This glycosylation is fundamental to the proper function of multi-cellular organisms and consistent with physiological demands for greater biological specificity. This Group consolidates cross disciplinary problems in carbohydrate structure and involves personnel with analytical expertise and dedicated instrumentation for a comprehensive approach to function. ***